Materials and Processing Research for High-Performance Optoelectronic Devices Employing III-V Compound Semiconductor Native Oxide Layers

9612283 Dupuis This multidisciplinarv research project, overlapping the disciplines of Materials Science, Electrical Engineering, and Chemistry comprises a comprehensive approach to study the synthesis and properties of thin film native oxides in technologically important III-V semiconductors, as well as addressing the improvement of optoelectronic devices through the use of these oxides. The overall aim is to achieve greater basic understanding and subsequent development of a native oxide suitable for compound semiconductor structures to obtain comparable performance to the role and importance of SiO2 in silicon based electronics. %%% The project combines concepts and methodologies from materials science, electrical engineering, chemistry and physics with advanced electronic, spectroscopic and structural characterization tools to address forefront issues at the interfaces between these disciplines. The research will contribute basic new knowledge at a fundamental level to several aspects of materials science engineering, and optoelectronics. An important feature of the program is the integration of research and education through the training of students in fundamental interdisciplinary research areas. ***